CAREER: Physics-Based Computer Aided Geometric Design: Theory and Applications

Computer Aided Geometric Design (CAGD) is of fundamental importance in geometric computing, graphics, visualization, robotics, and other disciplines. This project is to develop Physics-Based CAGD, a new interdisciplinary paradigm which marries geometric modeling with computational physics. The objective of this project is to dramatically enhance the CAGD process by creating advanced parametric and implicit geometric models with highly intuitive behaviors that are governed by physical principles. This project takes the following three-fold approach to achieve its goal: (1) Continue the research endeavor on Dynamic Non-Uniform Rational B-Splines (D-NURBS); (2) Explore and devise novel physics-based modeling techniques and algorithms based on powerful new representations, including subdivision wavelets, manifold splines, and implicit functions; and (3) Exploit the theoretical advances of the earlier stages of this project to develop an extensive set of efficient algorithms and interactive software routines of Physics-Based CAGD for a wide range of applications. This project is further augmented by the following educational initiatives: (1) Develop new graduate and undergraduate courses; (2) Write a textbook on Physics-Based CAGD; (3) Promote and participate in interdisciplinary research and education projects; (4) Produce highly trained personnel by supervising graduate students, directing senior projects of undergraduate students, participating in outreach and mentoring programs, etc; and (5) Promote the rapid dissemination of Physics- Based CAGD technology to national enterprise through collaboration with the CAGD industry. The results of this project will yield highly interactive CAGD techniques. Furthermore, these research and education advances will demonstrate that Physics-Based CAGD can serve as a unified basis for various traditional design techniques.